Introduction of Molecular Biology to the Undergraduate Curriculum

This project supplements a current molecular biology course with a hands-on labortory focusing on experiments that will lead to undergraduate research projects. Equipment includes: horizontal gel electrophoresis (1/student pair, Hoeffer), photographic materials (Polaroid), a microcentrifuge (Eppendorf), a benchtop incubator (Precision) and material for PCR (thermal cycler, vacuum blotter). Exercises include: plasmid isolation, restriction mapping, Southern hybridizations, construction of cDNA libraries, screening techniques and PCR reactions. The institution has a high enrollment of minorities (59% Hispanic).